Conceptual Models For Explaining Process Behavior from Process Trends - Creativity Award

Computers have become indispensable in the design, simulation, optimization, control, and scheduling of chemical processes. Yet, the conceptual representations and computational models needed to more fully automate the higher-level thought processes of the managers, operating engineers, and operators of large process management and control systems have yet to be found. %%% The proposed research is about creating the necessary conceptual representations and implementing them as computational models in order to manage the information flow of an autonomous process control system.